Industry/University Cooperative Research Center for Communications and Signal Processing

9312549 Abbott This three-year continuing award is under the "Self-Sufficient Partnership for Research" Program. It supports basic research to augment the research agenda of North Carolina State University's Industry/University Cooperative Research Center for Communications and Signal Processing. The Center continues to meet the renewal criteria requirements of the I/UCRC Program. Funding for a three-year continuing award for an evaluator to study the industry/university interaction occurring in the Center is also provided. The U.S. Army (AMSEL) is providing funding to augment ongoing research projects and to obtain a membership in the Center. Additional funding is provided by the U.S. Department of Energy's Environmental Restoration and Waste Management Office to obtain a non-voting membership in the Center. The Program Manager recommends North Carolina State University be: awarded $58,000 for the first year of a three-year continuing award (includes $8,000 for an evaluator); $50,000 for one year with funds provided by the U.S. Army (AMSEL); and $10,000 for one year with funds provided by the U.S. Department of Energy. Near the end of each 12-month period, the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria requirements, including the following: 1) the extent to which university/industry interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period of this continuing award.